Macromolecular Graphics Facility For Undergraduate Education

9352582 Davison Undergraduate students use advanced molecular graphics workstations and appropriate software in an integrated series of exercises which introduce molecular modeling into biochemistry classes, beginning with simple viewing and rotating exercises in introductory classes, proceeding through examinations of DNA-protein interactions and calculations of binding energies, and concluding with solutions of complex problems involving protein. ***